Vermont Physics Initiative - Improving Quantum Mechanics Undergraduate Education and Strengthening High School Teacher Preparation

By adopting and adapting the Paradigm in Physics curricular materials developed at Oregon State University, this project is working to improve undergraduate education in a second-year modern physics course and in a third/fourth-year quantum mechanics course at the University of Vermont. In addition to using these course materials, the project is using validated assessment instruments to measure increases in student knowledge and, through the use of longitudinal surveys, to assess the evolution of ontological beliefs about modern physics and quantum mechanical concepts. Dissemination is specifically targeted at other physics departments in the state of Vermont.